Oceanographic Instrumentation 2010

A request is made to fund additional and back-up instrumentation on the R/V Thomas Thompson, a 274’ general purpose Global research vessel and the R/V Clifford Barnes, a 66’ general purpose Coastal vessel. Both vessels are operated by the University of Washington as part of the University-National Oceanographic Laboratory System research fleet. The request includes four items listed by priority:

1) Meteorological sensor suite for R/V Thompson
2) Meteorological sensor suite for R/V Barnes
3) 300 Khz ADCP, hull-mounted on R/V Thompson
4) 150 kHz Lowered-ADCP for use on either ship, plus battery pack

Broader Impacts:
The principal impact of the present proposal is under criterion two, providing infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.